Manufacturing Engineering Program for Young Scholars

9452704 Watford Virginia Polytechnic Institute and State University seeks to initiate a 4 week, residential Young scholars project for 30 students entering the 12th grade. The Manufacturing Engineering Program for Young Scholars will introduce young scientists and engineers to manufacturing systems design and control. Topics include Computer-Aided Design, Manufacturing Processes/Computer- Aided Manufacturing, Robotics, Statistics and Quality Control and System Simulation. Lectures, laboratory exercises and trips to industrial facilities will introduce manufacturing methodologies using hands-on techniques and emphasize the importance of basic scientific, mathematical, and engineering concepts in the development/operation of manufacturing systems, Project assignments will include both designing and prototyping of manufactured parts and the analysis and control of manufacturing systems. Completion of the project work will involve the participation in project management tasks and in oral presentations. Videotaped presentations will be part of the follow-up component. ***